Fast, Countercurrent Leaching of Fine Particles in a Spinning Helical Tube

This is a proposal requesting supplemental funding to support Ms. Lisa Sweeney to join Dr. Adler's research program full-time during summer 1987 and part-time during the following academic year. Ms. Sweeney is completing her junior year at Case, and has a 3.88/4.00 GPA. In addition, she is active in student activities and appears to possess good leadership qualities. The fund requested is $4,400.